A Multi-Actuator Architecture for Reactive Motor Control

This is a proposal to develop a neural network based algorithm for controlling eye and limb movements. The algorithm will assume that different actuators (such as the limb and the eye), in spite of their differences, share some basic biological strategies in generating appropriate movements to motor commands. The proposed strategies will be based on currently emerging knowledge in neurophysiology, a novel approach to guide the design of artificial control systems. If successful, the research will not only provide improved understanding of natural motor control, but it may also provide anew methodology for designing artificial control systems. Such methodology would be of great potential utility in robotics and in the design of control systems to aid the physically disabled.